Engaging the Community to Achieve Success in Engineering II

This project seeks to encourage and enable academically talented, but financially needy transfer students from diverse backgrounds to enter the workforce or continue in graduate studies following completion of a baccalaureate degree in electrical engineering. The specific objectives are to provide 20 students full ($10,000 per year) and/or partial ($5,000 per year) scholarships for up to three years, increase the diversity of our incoming engineering students, maintain high retention rates, institutionalize and disseminate successful components of the program, and increase the number of well educated and skilled engineers in the workforce. The intellectual merit of the program includes active mentorship and student support services. A focus on hands on learning through laboratory oriented classroom activities, a design emphasis throughout the curriculum, a required engineering internship, academic and industrial mentorship throughout students’ studies, study hall, and other social and academic activities are included. Broader impacts of this project are primarily focused on broadening diversity with intentional ethnic recruiting from community college transfer students.